A Programming Laboratory for Computer Networks

9452037 McCabe A programming laboratory for Computer Networks is proposed. Standard Computer Networks texts and curricula have emphasized general concepts ranging from the physical layer to the application layer, but most undergraduate Computer Networks courses fail to provide experiences of network management and program development in an actual network environment. A basic knowledge of Computer Networks has become a necessary part of the undergraduate curriculum for CS students. Exposure to network concepts is not enough. For most students, network concepts remain abstract and difficult to understand if lecture material is not followed by laboratory exercises that crystallize the concepts. Since standard network systems are used as an environment for intensive network programming assignments, the resulting laboratory manuals are portable to other universities.